Using Artificial Intelligence to Personalize Mathematics Instruction to Students Interests

This Developing and Testing innovations project aims to explore the impacts and opportunities that emerge when using Generative Artificial Intelligence (GenAI) to construct personalized algebra problems for 7th grade students. Middle school algebra is targeted because research has shown that algebra courses can be a major barrier to future engagement with Science, Technology, Engineering and Math (STEM) and Information and Communication Technology (ICT) careers. The project builds on prior work that established that personalized algebra interventions that connect math to students’ interest in areas like sports or video games could increase both core algebraic knowledge and STEM career interest for students with low academic achievement. Algebra performance is gatekeeper to further successful STEM study and careers, making it an ideal target for increasing the number and diversity of learners who pursue STEM study and roles in the STEM workforce. Further, this project will gain a better understanding of how to employ AI to support teachers, developing new models for how to make teaching more efficient and effective while still preserving the teachers' agency. This project is funded by the Innovative Technology Experiences for Students and Teachers (ITEST) program, which supports projects that build understandings of practices, program elements, contexts and processes contributing to increasing students' knowledge and interest in science, technology, engineering, and mathematics (STEM) and information and communication technology (ICT) careers.

The project has identified two distinct GenAI-enabled personalization strategies to explore: a “Greater Depth” approach that trains the AI to generate new personalized problems that are meaningful to student experiences with their interest areas, versus a “Smaller Grain Size” approach that uses AI to modify the presentation of existing problems to more superficially reflect student interest areas but be easily scalable by teachers. These strategies likely have different affordances for both students and teachers, which will be investigated by the research. Specifically, the research questions will investigate the impact of AI-generated word problems (with and without AI-generated images) on student math performance, study the tradeoffs for both students and teachers for the two different GenAI personalization strategies, investigate changes in how teachers understand student interests and posing math story problems as a result of using GenAI, and investigate how teachers can use prompt engineering to produce personalized problems. The project will use participatory approaches to engage teachers in iterative cycles of design, increasing the likelihood that the approach will draw upon learners’ funds of knowledge. The intellectual merit of this proposal lies in its exploration of employing GenAI to scale up personalization in mathematics – it will document the opportunities, constraints, and barriers involved in using this technology for both teachers and students. It will also add to our understanding of the impact of personalization on student engagement in mathematics. Given the fact that algebra often functions as a gatekeeper to more advanced STEM courses, the potential broader impacts of this project are large – any improvements in learner engagement in mathematics can have lasting benefits for learners’ STEM trajectories, and online learning platforms where GenAI can be leveraged are widely-used in mathematics. The curriculum and models developed by this project will be made freely available and implementable via the ASSISTments platform, thus scaling up the reach of this work to tens of thousands of learners across the United States.